U.S.-Korea Cooperative Research: Electron Transfer Photochemistry

0121510
Mariano

This award supports Professor Patrick S. Mariano, Department of Chemistry, University of New Mexico, to conduct collaborative research with Professor Ung Chan Yoon, Pusan National University in Korea. The joint study will focus on electron transfer photochemistry. Among the various types of reactions occurring in electronic excited states of organic substrates are those that involve intramolecular transfer of atoms and groups. These reactions proceed by concerted or multi-stepped routes. This collaborative research between U.S. and Korean researchers is to develop new and useful photochemical reactions.